Inuit/Euro-American Interaction: A Zooarchaeological Perspective from Forbisher Bay, N.W.T., Canada

The objective of this doctoral dissertation research is to use faunal remains from archaeological sites on Frobisher Bay, Baffin Island, NWT, Canada, to analyze the cultural contacts between European and Inuit populations. The study will focus on three aspects of the archaeological record: (1) systematic examination of animal bones from Inuit sites representing different phases of European contact; (2) an analysis of changing Inuit settlement patterns; (3) differences in butchery patterns relating to the intoduction of metal trade goods. It is proposed that this study will also shed light on human-animal relations and climate change.